The Genetic Basis of Sex Ratio Distortion in Silene Alba

While traditional sex ratio theory predicts organisms will produce roughly equal proportions of the sexes, many species exhibit persistent sex ratio biases. Consequently, there now exists a rich diversity of theory pertaining to biased sex ratios. Meiotic drive, cytoplasmic inheritance and other non-Mendelian mechanisms of sex ratio distortion may play a major role in the evolution of biased sex ratios. Meiotic drive systems, including sex ratio distorters, may be central to our understanding of evolutionary processes such as sex chromosome evolution, the evolution and diversity of sex determining mechanisms, and the origin of sterility barriers between species (including Haldane's Rule). Initial research has shown that certain families of Silene alva, a dioecious plant, exhibit severely female biased sex ratios. Studies involving molecular markers of the Y chromosome show that the vias is present in the seed and is therefore, not due to a higher mortality of male progeny. Sex ratio bias is inherited through or expressed in the male parent. This pattern of inheritance and other circumstantial evidence lead one suspect and X-linked meiotic drive system may be responsible for the evolution of the female bias. The proposed research will determine the genetic basis of sex ratio distortion in Silene alba by using reciprocal crosses and backcrosses. RAPD markers, will be used to investigate specifically how and when the female bias develops. Crosses among geographically separated populations and among closely related species will be used to detect sex ratio distortion which is normally suppressed by restorers. Finally, whether the structure of natural populations of Silene alba is consistent with other mechanisms of selection for biased sex ratios will be determined. These results will provide information the nature and diversity of genetic mechanisms influencing sex ratio in natural populations. Moreover, because sex chromosome markers and wide crosses represent unique approaches to studying sex ratio genetics,it is expected that methods will stimulate research into mechanisms of sex ratio bias in other species.